Research Resources: Computational Science and Engineering: Intelligent Information Acquisition and Management Infrastructure

EIA 02-22628
Kavi, Krishna M.
Mikler, Armin R.; Swigger, Kathleen M.; Wilson, Angela K.
University of North Texas

CISE RR: Computational Science and Engineering: Intelligent Information Acquisition and Management Infrastructure

This proposal, addressing multithreaded computer architectural and sensor-network simulations, concurrent analysis of multiple flight data recorders, and computational chemistry, requests a Beowulf cluster, a Sun multiprocessor, and a 1.3TB storage device to enable research in the following four projects:

1. Scalable Clustered Multithreaded Architecture for Embedded and DSP Applications,
2. SensorNet,
3. Analysis of Flight Data Recorder (FDR) Information, and
4. Computation Chemistry: Quantum Chemical Functional Group (QCFG) approach.

The first project evaluates the suitability of multithreaded architectures for embedded and DSP systems developing customizable and scalable implementations to meet the performance and energy requirements of future embedded and DSP applications. The second designs and implements an agent-based monitoring infrastructure to facilitate data-acquisition and event-correlation for large number of widely distributed environmental sensors of different types. This project aims at integrating the Leibniz system for computation based on prepositional logic. The third project concentrates on problems related to the organization and management of large, real-time distributed knowledge investigating various architectures and systems for real-time transmission of flight data to insure more accurate and reliable information. Looking into real-time collaborative interfaces that can support distributed communications and collective decision-making, this projects examines data mining techniques that can be used to aid in post-mortem analyses of accidents. The last project enables an approach to obtain quantitative descriptions of structures, energetics, and other properties for intermediate- to large-sized molecules.
The equipment is expected to lead to new research in Intelligent Information and Intelligent Resource Management.